New Synthetic Approaches towards Non-Oxidic Glasses and their Structural Characterization by Solid State NMR Techniques

The goal of this work is to prepare and characterize non-oxidic glasses, based on sulfides, selenides, tellurides, and phosphides of the Main Group III, IV and V elements. New synthetic routes for these systems are developed to exert and maintain tighter structural and compositional control of these glasses than presently possible by melt-quenching techniques. These routes involve precipitation from solution using well-defined molecular precursors, and plasma-enhanced chemical vapor deposition (PECVD) of amorphous films from gaseous reactants. The structures of these materials are characterized by state-of-art solid-state NMR methods. An integral part of this project is the development of new heteronuclear X-Y double resonance NMR methodology, and its application to the system under study. In addition, detailed in- situ high-temperature NMR measurements provide information about structure, dynamics, and chemical equilibria of these materials in the molten state above glass transition temperature. %%% The goal of this work is to prepare and characterize new glasses that have important technological significance as low-frequency waveguides, photoconductors, and solid electrolytes. While the latter two applications already are being commercially utilized, potential uses of infrared fibers include laser power delivery, remote tempearture monitoring, thermal imaging, and chemical sensing. The project aims at developing more versatile preparation strategies that maintain closer structural and compositional control of these glasses through synthesis than presently possible. In addition, a fundamental understanding of the physical properties of these glasses in terms of their structural organization is sought. Innovative spectroscopic techniques are used to uncover the atomic arrangements in the proposed glasses. By virtue of this approach, the project is instrumental in developing and testing fundamental theoretical concepts for the structural description of amorphous and glassy covalent solids. The combination of new preparation methods and structural analysis will aid in the development of glasses with improved technological properties.